Research in Topology and Applications

DMS-0071202
Julius L. Shaneson

Most of the proposal concerns applications of relations
between continuous and discrete summation in higher
dimensions. Such a relation is called an Euler-MacLaurin
formula, and describes how to sum a function over a set of
lattice points in a geometric region in terms of integrals
of the function and its derivatives on the region and parts
of the boundary. For polynomial functions summed on lattice
points of a polytope with lattice point vertices, there are
exact, closed formulae for doing this, due to the proposer
and S. Cappell, obtained as consequences of their results
on characteristic classes of singular varieties. For general (transcendental) functions, there are approximate formulae of
given length, together with remainder terms involving
differential operators whose coefficients are related to generalizations of the classical Bernoulli polynomials on
the real line. The capability to handle trascendental
functions makes possible the use Euler-MacLaurin formulae
the study the growth of the number of lattice points in smooth
regions, such as circles or the regions under a hyperboloid,
as the figure expands.

A lattice point can be thought of as a vertex point in a multidimensional grid or lattice-work. Results relating
summation over such points to some continuous summation
process, i.e. some type of integration method, can
impact numerous applied mathematics problems, including
rapid integration schemes, problems in network capacity, and
optimization issues in shipping and communications.
In addition, questions concerning the number of lattice
points in smooth regions, especially certain very symmetric
ones like circles or parts of hyperboloids, are well-known
to arise in central parts of number theory, and good estimates
on these could lead to new results on the distribution of prime
numbers and other important questions. Finally, these counting
methods might be good test cases for the problems ("P = NP") of logic/computer science concerning the miminum time needed
to perform certain kinds of computations.